RIA: Synthetic Aperture Radar Diversity Measurement and Signal Processing Techniques for Surface Roughness Determination from Speckle Patterns

The objectives of this project are to examine and develop new observation and information extraction techniques for synthetic aperture radar (SAR) images of terrain. These techniques extract surface roughness information on a spatial scale on the order of the radar illumination wavelength using diversity measurements of speckle patterns arising in the imaging of the observed surface, where diversity can be in the form of frequency, position, or polarization diversity. Hence, rather than viewing speckle as a corrupting noise in the SAR imaging process, image speckle is used as a carrier of information on the imaged surface. These techniques have the potential of providing surface roughness characteristics on a much smaller scale than the typical spatial resolution cell of SAR imagery, greatly enhancing the geological measurement capabilities of SAR terrain images - one of the major uses of SAR. These techniques involve the extension of optical speckle metrology techniques for determining the surface roughness characteristics of surfaces illuminated by laser light. This involves extending optical speckle models to SAR imaging at microwave frequencies and extending speckle metrology techniques to provide useful new surface information under the constraints of airborne and spaceborne SAR platforms. The resulting techniques are tested using computer modeling and real SAR measurements.